CAREER: Dynamics of Gas-Phase Persistent Organic Chemicals: An Investigation of the Effect of Climate Using a Controlled Chamber

9702532 Hornbuckle Deposition of persistent organic chemicals (POPS) from the atmosphere to plant surfaces may control their fate and residence time. POPS, which include polychlorinated biphenyls, polycyclic aromatic hydrocarbons, and organochlorine pesticides have an affinity for plants due to the lipophilic nature of the compounds and the waxy, lipid-like surfaces of leaves and needles. Because of this affinity, plants may act as sinks for atmospheric POPS. Plants may also act a temporary 'resting points' for long-range transport of the compounds from warmer regions to cooler regions of the globe. Whether vapor-phase POPs are taken up or released by plants is expected to depend on characteristics of the compound, the plant, and the local climate. Theoretically, it has been predicted that temperature and POP hydrophobicity should dominate vapor exchange. In addition, field data for ambient levels of POPs has indicated that relative humidity and plant stomatal behavior may also play a role. Research objectives in this study are to quantify the effect of local temperature on POP vapor-plant surface exchange; to quantify the importance of relative humidity on POP vapor-plant surface exchange; to determine to effect of UV radiation on sorption of POPs to plant surfaces. Experiments will be performed under controlled environmental conditions in an environmental chamber populated with Ficus benjamina, a common tree-like house plant. Because of the size of the chamber and its ability to reproduce environmental conditions, the study provides a link between traditional laboratory concentrations as a function of the three climate surrogates. The test chamber provides a unique facility for atmospheric simulation, air pollution, cloud physics, and aerosol research studies. The effect of climate surrogates on exchange of gas-phase persistent organic chemicals with plant surfaces will be examined in this chamber. Climate surrogates include temperature, relative humidity, and ultra violet radiation. Gas phase POPs will be introduced from ambient air, in order to measure, model and predict the dynamics at low concentrations, and introduced via a gas-stream generation column. ***